ACCESS II (Atmospheric Chemistry Colloquium for Emerging Senior Scientists); Cambridge, Massachusetts; June 1993

In response to a petition made to the National Research Council's Committee on Atmospheric Chemistry to establish an institution aimed at recent or expectant Ph.D. recipients on the threshold of independent research careers in atmospheric chemistry, the PIs have organized the second in a series of colloquia designed to introduce these young scientists and their thesis and/or post doctoral research to one another and to representatives of the major funding agencies involved in atmospheric chemistry and closely related topics. The PIs have organized a meeting to be held at Harvard in Cambridge, 18-19 June 1993 in conjunction with the 1993 Gordon Research Conference on Atmospheric Chemistry to be held in Newport, RI 21-25 June 1993. In addition to the young scientists, representatives from NSF, NOAA, NASA and DOE will participate in this colloquium.